Nonpositive Curvature and Hyperbolicity in Geometric Group Theory

This proposal has two main scientific components. The first part is a
project to understand relatively hyperbolic groups and CAT(0) spaces
with isolated flats, two topics that are tightly connected by previous
work of the PI with Bruce Kleiner. The PI plans to continue a joint
project with Kim Ruane to study the topology of the boundary of a
space with isolated flats and its relation to group splittings. The
PI also plans to continue work in progress with Daniel Wise on
a-T-menability and its relation to CAT(0) cubical complexes. In
particular, they plan to cubulate many classes of hyperbolic and
relatively hyperbolic groups.
In second main component, the PI plans to continue a program to study
the lattice theory of the automorphism group of a simplicial complex,
in a joint project
with Benson Farb. This program is at the frontier between geometric
group theory and the theory of discrete subgroups of Lie groups and
linear algebraic groups, and generalizes recent work of Bass--Lubotzky
on tree lattices.

The PI is interested in the large scale geometry of spaces with
nonpositive curvature. That is, they have a nontrivial mixture of
negative curvature (like a saddle) and zero curvature (flat like a
piece of paper), but no positive curvature (like the surface of a
ball). More specifically, his research has focused on nonpositively
curved spaces with isolated flats. These spaces are almost negatively
curved in the sense that the flat, zero curvature, parts do not
interact with each other. Thus techniques from the elegant theory of
negatively curved spaces can sometimes be adapted to hold for spaces
with isolated flats. In a separate project (joint with Benson Farb),
the PI is studying the symmetries admitted by nonpositively curved
spaces built by gluing together polygons along their edges. This
project is an attempt to bridge the gap between the mathematical
fields of geometric group theory and linear algebraic groups.